ITR: Collaborative Research: Efficient Resource Management for Controlled-Mobility Wireless Networks

Today's embedded computers are increasingly mobile and ubiquitous, are
capable of interacting with the environment, and can communicate with
one another over possibly vast and pervasive networks. While most of
the wireless networks are not expected to be capable of controlling
their own motion, new technological possibilities are emerging to
provide small embedded devices with the means to propel themselves,
with an energy expenditure that is comparable to the energy budget of
communication and computation.

A Controlled-Mobility Wireless Network (CMWN) is defined as a network
of embedded devices endowed with computation, communication and motion
capabilities. The purpose of this project is the development of a new
conceptual framework for the design, development and operation of
efficient and reliable networks with such characteristics.

The overall objectives of the basic research proposed in this project
are:

1. The development of a conceptually sound, consistent and complete
framework for the analysis of the interactions between competing
computation, communication, and motion control requirements, arising
in the design of CMWNs.

2. The design, analysis, and performance characterization of
distributed algorithms and communication protocols for provably
efficient and adaptive CMWNs.

3. The specification, implementation and verification of software,
middleware and networking services for the deployment of
representative CMWNs.